Bringing Research on Learning to the Geosciences: A Workshop Proposal

The investigators would host a two-day workshop of 20 leaders in geoscience education, learning sciences, and the application of learning science to STEM disciplines. The goals of the workshop are to define the compelling research issues about learning in the geosciences, discuss avenues for disseminating existing research on learning, and initiate broad-based planning and coordination of activities. The participants in the workshop will discuss classroom experiences that are believed to be critical barriers to learning, define existing research that is applicable to learning geosciences, define new work on learning in the geosciences, and agree on specific steps. The meeting will produce a report with recommendations for disseminating research on learning.

This workshop is believed to be the first step in a series of activities to integrate research on learning into undergraduate geoscience education.